Collaborative Research: SHF: Hierarchical Optimization of Ragged Tensor Operators for Deep Learning Workloads

Artificial intelligence (AI) applications such as large language models and graph-based learning systems increasingly rely on processing irregular data, where inputs vary in size and structure across tasks. This irregularity leads to inefficiencies in current AI frameworks, which are primarily designed for uniform workloads. As a result, significant computational resources are wasted, limiting the scalability, responsiveness, and energy efficiency of modern AI applications that are central to national priorities in healthcare, scientific discovery, and advanced manufacturing. This project addresses these limitations by developing new methods to efficiently process such irregular data on modern hardware, enabling faster and more cost-effective AI systems. Moreover, the outcomes of this project will include curriculum development in parallel computing and machine learning courses as well as community outreach to enhance workforce training through adopting new methods of handling irregular data computation.

To handle computations involving irregular tensors, such as those arising in online serving of large language systems and heterogeneous graphs, modern AI frameworks employ batching and padding-based solutions, which can increase latency and introduce significant memory overhead. This project aims to develop a unified framework for optimizing irregular tensor computations on graphics processing units. The research focuses on three integrated thrusts. First, a multi-level auto-tuning system dynamically selects execution strategies for irregular workloads while minimizing runtime overhead through efficient sampling and search-space pruning. Second, new communication and scheduling techniques improve data locality, load balance, and coordination across processing units, enabling scalable execution on both single-device and multi-device platforms. Third, a compiler framework introduces adaptive operator fusion and execution strategies that integrate irregular computations into existing AI systems. These components will be evaluated across representative AI workloads to ensure performance portability and scalability. By bridging high-level irregular tensor computations with low-level hardware execution, the project will advance the foundations of AI system infrastructure for efficient execution of critical AI workloads.